A Deductive Engine for the Semantic Web

This project aims at solving a number of algorithmic and architectural
problems that will enable tabled logic programming engines, such as XSB
(http://xsb.sourceforge.net), to become viable platforms for supporting the
emerging infrastructure for the Semantic Web. The project will address the
following issues:

1. Design of algorithms for solving a long-standing problem of
inconsistency between tabling and update operations.
2. Designing an architecture for supporting explanation-based reasoning
at the engine level.

Developing low-overhead algorithms for allowing tabled query answers to be
correctly updated when changes occur to the underlying predicates is of
critical importance in applications that require tabling and at the same
time frequently modify the data underlying those tables (such as workflow
schedulers, verification algorithms, database queries, CASE tools).
Explanation based reasoning is important for debugging and verification.

The project will develop a new technology, which will allow tabling logic
engines to provide inference services for the Semantic Web. Logic
inference engines are expected to become a crucial part of the Semantic Web
infrastructure. Once in place, the Semantic Web will enable a host of
applications in information retrieval and Web services, which will become
inseparable part of people's daily life.